Mathematical Sciences: Curvature Measures and Tangential Bodies

The research entails the geometric inequalities in the theory of convex sets and methods of geometric measure theory. Such techniques have applications to the equilibrium shape of crystalline structures possessing minimal surface area and lattice spin systems. Such phenomena are actively studied in materials theory.